Analytic and Geometric Aspects of Ricci Flow

Abstract

Award: DMS-0505507
Principal Investigator: Bennett Chow

The project is aimed at the study geometric and analytic problems
in the field of Ricci flow and related geometric evolution
equations. Motivated by singularity analysis, it is of interest
to obtain further understanding of ancient solutions. We study
the problem of obtaining a more detailed classification in
dimensions 2 and 3 using new Harnack inequalities, entropy
estimates and the method of Aleksandrov reflection which is
particularly useful in dimension 2. In particular Hamilton and
Perelman entropy estimates, Li-Yau-Hamilton type Harnack
estimates, gradient estimates, space-time geometry, l-function,
linearized Ricci flow are techniques which may be generalizable
and useful to solve these problems. The existence problem for
Type II singularities is considered. The cross curvature flow
should be useful in understanding the space of metrics with
negative sectional curvature on a 3-manifold. We propose to
investigate its long time behavior. The expository book projects
will further the understanding of geometric analysis and
geometric evolution equations in the greater mathematical and
scientific communities.

Ricci flow is an important tool in the study of the analysis,
geometry and topology of manifolds, especially in low
dimensions. It is intimately related to other geometric evolution
equations. The recent work of Perelman on Hamilton's program for
Ricci flow and its applications towards a possible solution to
the Poincare and geometrization conjectures has yielded a
plethora of new ideas and techniques which may be applicable to
solve problems in Ricci flow and other geometric evolution
equations. This will increase our understanding of the analysis
and geometry of manifolds and related fields such as topology,
partial differential equations, and mathematical physics.